Mathematical Sciences: Quantum Integrable Systems

9322614 Toth The project involves the study of the classical and semi- classical spectral asymptotics for the C. Neumann problem and geodesic flows on the ellipsoid. In addition, connections between the generalized asymmetric topology and the theory of geodesic flows will be investigated. This project lies at the interface between analysis and geometry. The problems are naturally related to fluid flow in a manifold and important problems of acoustic scattering. The techniques involved cover a wide spectra from classical function theory to the latest results from the geometry of group actions. ***